Cincinnati Urban Systemic Initiatives

Cincinnati's self-study is directed by Steering Committee that is broadly representative of the community, educators, business, informal science, and the Ohio Department of Education . The self- study will begin with a review of current practices including goals, available equipment and technology, community resources, teacher qualifications, model programs, and others. New data will be gathered from the broad community through surveys, interviews, and observations. The data will be carefully analyzed and recommendations for improvement made by the Steering Committee. Public fora will be held in the city to share the data and recommendations and to gather comments on them to be included in a final set of recommendations and a plan for improvement of science and mathematics education based upon the data and recommendations. The award period is for 12 months, starting February 1, 1993